Proposal to Continue Upgrading the Facilities Jicamarca Radio Observatory

This CEDAR proposal will provide funds for capital equipment for the Jicamarca Radio Observatory for two specific purposes: (1) to continue and complete the modernization of the Jimamarca data acquisition and computing system begun with a 1988-1989 CEDAR grant, and (2) to purchase and install a modern ionosonde at Jicamarca.***//